Crystallographic Studies of B. Symbiosus Pyruvate Phosphate dikinase

The goal of the proposed research is the elucidation of the mechanism of the enzyme pyruvate phosphate dikinase at the molecular level. This is to be achieved through the x-ray crystallographic determination of the structures of the native enzyme, of mutant enzymes and of enzyme-inhibitor complexes.